Planning Visit to Taiwan: Designing A Virtual-Reality-On-Demand System

9900215
Liu

This is a planning visit proposed by Dr. Chien-Liang Liu, Washington State University, to work with Dr. Ruen-Rone Lee of the Taiwan Industrial Technology Research Institute to design a virtual-reality-on-demand system. The proposed system will provide concurrent accesses to the virtual environment. The results will benefit many types of computer applications such as simulation, training and scientific visualization. This study is jointly sponsored by the Taiwan National Science Council and the National Science Foundation.